Mathematical Sciences: Linear Series on Algebraic Varieties

Lazarsfeld Professor Lazarsfeld will investigate geometric and algebraic properties of linear series on higher dimensional varieties. In particular he hopes to prove the higher dimensional analogue of Fujita's conjecture. He also hopes to work on syzygies of smooth surfaces and Sheshadri constants on higher dimensional varieties. This is research in the field of algebraic geometry. Algebraic geometry is one of the oldest parts of modern mathematics, but one which has had a revolutionary flowering in the past quarter- century. In its origin, it treated figures that could be defined in the plane by the simplest equations, namely polynomials. Nowadays the field makes use of methods not only from algebra, but from analysis and topology, and conversely is finding application in those fields as well as in physics, theoretical computer science, and robotics. ***